International Couette-Taylor Workshop to be held at Northwestern University, September 2001

Abstract
CTS-0092584
R. Lueptow, Northwestern University

The 12th International Couette-Taylor Workshop will be held at Northwestern University in September 2001 with Dr. Lueptow as the organizer. Besides Couette-Taylor flow, the research topics to be discussed in the workshop will include non-linear dynamics, instability, Goertler/Dean vortices, and other vortical flows. It is anticipated the workshop will have 80-100 participants with 50-60 contributed papers. It provides an excellent opportunity for fluid dynamicists in this field of research to have an open exchange of ideas.